Understanding How K-12 Science Teachers' Use of AI to Modify High-Quality Open Education Resources Reshapes Their Participatory Relationship with Curriculum

High-quality open education resources (OERs) have the potential to positively transform K-12 science instruction, making high-quality instructional materials available at no cost and empowering teachers to provide state-of-the-art science learning opportunities to far more students than possible otherwise. Increasingly, however, teachers are using artificial intelligence (AI) to modify these materials. Because AI is proliferating rapidly, teachers urgently need AI tools designed for them, and that are well grounded in both the research on teachers' needs and the design principles on which the curriculum materials are based. The project, led by Horizon Research, Inc, will study how and why science teachers use AI to modify a specific high-quality K–12 science instructional material, OpenSciEd. Knowledge generated through this research will enable developers to build AI tools that support teachers using such materials, both by suggesting modifications that align with the materials' design principles and by developing teachers' understanding of those principles and how to enact instruction that aligns with them. Study findings will inform the development of AI for other high-quality OERs, not just OpenSciEd.

The project will develop both a teacher survey and an in-depth interview protocol to collect data about middle and high school science teachers' use of AI to modify high-quality OERs. Survey and interview questions will address teachers' types of modification, reasons for modifications, and perceived impacts of modifications. Five hundred middle and high school teachers will complete the survey. From the pool of survey respondents, 70 will be purposefully chosen across grade levels and course subjects for in-depth interviews about their use of AI for modification. Analysis of survey and interview data will generate profiles of AI use (goals, modification strategies, and perceived outcomes). We will draw across all these analyses for our overarching goal of understanding how AI reshapes a teacher’s relationship with their curriculum.

This project is funded by the STEM K-12 program, which supports fundamental, applied, and translational research on STEM learning in both formal K-12 education and informal learning environments.